Geometric and Topolocical Structures Related TO M-branes

The goal of this project is to investigate new geometric and topological structures arising from M-branes in M-theory. The PI also plans to study the group of charges of the M-branes. This will involve higher notions of bundles, generalized cohomology, and modular forms. The subject matter proposed here suggests a rich interaction between theoretical and mathematical physics on one hand and geometry and topology on the other, and will provide new constructions in physics, differential geometry, and algebraic topology. Mathematics plays a very important role in deciding on the consistency of a physical theory by characterizing and canceling anomalies. Anomaly cancellations amount to refinements of the fields and provide a natural arena for imposing orientations on the underlying spaces with respect to (generalized) cohomology theories. These theories provide a fundamental mathematical machinery to describe invariants. On the other hand, M-theory, while not yet constructed, is already a very rich theory, both in terms of physical ideas as well as mathematical structures. Thus, the connection between the two is expected to yield a wealth of new mathematical structures. In fact, there has already been indication of this from the work of many researchers, including that of the PI. Previous work of the PI highlights the power of this method and demonstrates the strength of this approach to obtain new results and uncover new mathematical structures arising from physics. In addition, the work of the PI and others in this area has shown that application of ideas and techniques from geometry and topology unexpectedly yields nontrivial insights into physical theories as well. The project involves subtle constructions that are general enough to be of real interest to geometers, topologists, and physicists.

The interaction between geometry/topology and field theory has recently been extended to string theory and M-theory. This is expected to be fruitful since string theory and M-theory subsume, and thus are structurally richer than, quantum field theory. Not only does powerful mathematics solve deep physical problems but many times we see that the physics inspires new directions in mathematics and sheds light on interesting constructions. The intended research will not only use techniques and have applications of constructions from geometry and topology, but will also provide new geometric and topological constructions motivated and guided by physics which will be of interest to both mathematicians and physicists.

The research will also expand collaboration and bridge the cultural gap between differential geometry/algebraic topology and theoretical/mathematical physics. The PI has been organizing annual research meetings at the American Institute of Mathematics on Algebraic Topology and Physics in the last three years for that purpose and is co-organizing two other meetings 2011 and 2012 on such interdisciplinary topics. In addition, the PI would like to engage graduate students at Maryland in his research since the questions raised involve a wealth of ideas and techniques. He is currently co-organizing a Research Interactions in Teams (RIT) on Geometry and Physics, in which most of the lectures are presented by graduate and even undergraduate students. He has also organized an REU on Hyperdeterminants and Nonlinear Algebra, which has resulted in a publication with three undergraduates, two freshman and a sophomore.